Diversity in Computing Symposium, October 18-20, 2001; Houston, Texas

This award provides funding for scholarships to support students to attend the Richard Tapia Celebration of Diversity in Computing Symposium to be held in Houston, Texas on October 18-20, 2001. The goals of the symposium are to make visible the accomplishments of people of diverse ethnicities in the field of Computing. The symposium will be a technical event focusing on undergraduate and graduate students, who will participate directly in the symposium activities as speakers and panelists and who will also participate in poster board sessions.